Directed Metabolic Flow by Cellular Reduction State Control

The objective of the proposed work is to study the effect of the extracellular reducing environment on the intracellular reduction state and to see how it affects the flow of metabolites. The intracellular reduction state will be measured using culture fluorescence. In general, NAD(P)H levels are known to regulate the particular pathway that is chosen over others in a multi-product fermentation and there is evidence that the extracellular redox potential affects the NAD(P)H level within cells. It is hoped to exploit this phenomenon to control cells at a given intracellular reduction state and thus direct metabolic flow to one product in preference to others. The external redox potential will be controlled by two different methods, one physical and the other chemical. In addition to a better fundamental understanding of how NAD(P)H levels affect end-product formation, this study will help develop redox potential and culture fluorescence as online metabolic state sensors that will lead to novel bioreactor operating strategies for product optimization.